A Yellow Pages of Molecular Biology Software

This award will support creation of a publicly available, easy to use, centralized directory for molecular biology software and data. Specifically it will support upgrade of the computers and software supporting the University of Houston Gene-Server and expansion of its database to include current information on software and data available for use by molecular biologists. The resulting database will provide a network-accessible, centralized source for information on molecular biology software and data. The database will support a variety of access mechanisms (Mosaic, Gopher, FTP and electronic mail), so that even researchers with restricted access to the Internet can use its information. Production of the "yellow pages" of molecular biology software and data will involve creation of software tools which automatically scan a large number of potential information sources and retrieve copies of relevant information for inclusion in the "yellow pages" database.